EARTH VIEW: An interactive educational tool to explore topics in earth science and global change

9353081 Sambrotto This project is to develop an interactive, computer based program that will promote conceptualization through student exploration of relevant scientific and societal issues in earth science. The proposed software would provide the capability to access, analyze and model geographically based data using a state of the art graphical interface and would retrieve data over a distributed computer network such as Internet. The proposed curriculum entitled EARTH VIEW is to be a general model by which computer networking can be used to expand the classroom. A personalized notebook would be developed and used to guide students' exploration and would provide a site for recording findings and interpretations. This notebook would also serve as a portfolio for evaluation of learning progress. A CD-ROM would be produced for those schools who did not have direct access to an on-line data source or Internet.